REU Site: Integrated Interdisciplinary Nanoscience REU

The University of South Florida establishes an interdisciplinary Research Experiences for Undergraduates (REU) Site focusing on the modeling, synthesis and characterization of nanomaterials. Twelve students are recruited every year for ten-week summer research experience. Eight professors from the Departments of Chemistry, Chemical Engineering, Electrical Engineering and Mechanical Engineering serve as research advisors. Students participate in research projects with a focus on molecular science and its applications in nanotechnology, including theoretical modeling, synthesis, characterization and applications of nanomaterials. Students also attend workshops on instrumentation, patenting and licensing, ethics in research, tours of local high tech companies, and group social activities.